MRI Track 1: Development of a Geospace and Middle Atmosphere Lidar

This is a development project for a laser radar or Lidar (Light Detection and Ranging) system, which will be installed in proximity to a rocket range facility. The new Lidar will have three different frequency modes, serving distinct purposes from investigating the stratosphere to studying water ice habits in the mesosphere and troposphere. This system is designed to yield measurements at higher accuracy and precision and will provide measurements of the atmosphere between ~30-100 km altitude ranges. The resulting observations will improve understanding of atmospheric processes that influence terrestrial and space weather, enhancing knowledge of the near-Earth environment and its effects on technologies and infrastructure. This project will also facilitate academic growth of three early-career faculty members and provide for training of the next generation of scientists/engineers.

The new geospace and middle atmosphere Lidar utilizes a single diode-pumped solid-state Nd: YAG laser transmitter coupled with an upgraded large-aperture telescope receiver. The laser operates at three different frequencies spanning ultra-violet to infrared part of the electromagnetic spectrum. The receiver enables diverse measurements, with three operation modes: Mode 1 for Rayleigh-Mie-Raman measurements of atmospheric density, aerosols, nitrogen, and water vapor; Mode 2 for Rayleigh-Mie measurements of atmospheric density, aerosols, and polarized light; and Mode 3 for similar measurements at different wavelengths. This new lidar will support several innovative research topics that will strengthen inter-disciplinary collaborations. The topics include (a) simultaneous observations during active water release experiments (with temperature and aerosol measurements) that will address atmospheric thermodynamics and societal impacts due to space traffic, (b) studies of atmospheric waves, wave generation and dynamic instabilities (with measurements of temperature and density), (c) dynamic coupling between the lower, middle and upper atmosphere, nonlinear wave-mean flow interactions, and the impact of meteorological processes on space weather, (d) water vapor measurements to advance our knowledge of radiative forcing of the atmosphere, cloud formation, weather patterns, and long-term seasonal trends, (e) studies of clouds (with temperature, density, and aerosol measurements) that address meteorological processes.

This project, managed by the Aeronomy program, is jointly funded by the Established Program to Stimulate Competitive Research (EPSCoR), and MRI program.